Physics of Strongly Interacting Many-Electron Systems

9527304 Scalapino This project is for work on the physical properties of strongly interacting many electron systems. It includes numerical (using variety of techniques, MonteCarlo, density matrix renormalization group and transfer matrix diagonalization) calculations for the Heisenberg, Hubbard and t-J models describing fermions confined to coupled chains and/or planes. The goal of this work is to obtain a clearer physical understanding of the basic mechanism responsible for the magnetic, charge-density and pairing correlations and how these correlations give rise to the observed physical properties of strongly correlated materials. There are further proposals for phenomenological analyses that help elucidate the insights gained from the numerical calculations. %%% Some of the recently discovered magnets and superconductors are either chain-like (fibrous) or planar (flake) in their properties. The underlying materials are often the novel- synthetic materials. This theoretical study will help understand the properties and will be critical to potential applications of the novel synthetic materials. ***